Dual Pathway Introductory Laboratory with Introduction to Technical Writing

Introduction to Technical WritingThis project is designed to significantly improve the introductory physics laboratory at Saint Anselm College. It has two specific aims: 1) new sets of experiments allow engineering students and biology students to follow distinct pathways, each suited to the later academic and professional emphases of the individual; and 2) new computer facilities, both hardware and software, allow a new and more modern emphasis on data processing and data analysis, together with special attention to technical writing skills. The introductory physics laboratory is a combined one - it handles students from the calculus-based course (engineering and chemistry students) and from the algebra based course (biology students). The new two-path concept exposes engineering students to experiments dealing with properties of materials, aerodynamics, and the Stirling engine. The biology students follow a track intended to achieve a firm grounding in x-ray properties. The new computer facilities equip an already existing suite of rooms where students gather for study, and pre- and post-lab work. The laboratory reports stress modern technical communications skills, both as to content and form.